Lamb-Shift Quench Radiation in Plasmas

Professor Stern will investigate the use of Lamb-shift quench radiation to map the rich spectrum of fields (fluctuations, instabilities, elementary excitations) supported by and excited in a plasma. The phenomena investigated will have an important impact on solar and astrophysics as well as the fundamental physics of plasmas.